Determining the Damageability of the Loma Prieta Earthquake Motions: Predicted and Observed Damageability and Soil Effects

This project addresses the lessons learned from the 17 October 1989 Northern California (Loma Prieta) earthquake. The aim is to evaluate critical parameters of the Loma Prieta earthquake ground motions (including after shocks) that have engineering significance, and to demonstrate the use of these parameters in predicting the damageability of future Bay Area earthquakes. Information on the duration, time-variation and breadth of frequency content, cyclic history, etc. - motion properties known to have important effects on structural damage, but which are difficult to define and use explicitly - this information is incorporated implicitly in the characterization. A comparison is made between the predicted and observed damage-effective motion characteristics for the Loma Prieta earthquake. The observed analytical characterizations are used to explain specific cases of building damage and non- damage, while the influence of the soil on the motion characterizations is determined statistically. These data from the Loma Prieta earthquake are combined with data computed for earlier events. The project is expected to result in improved statistical formulas for the magnitude/distance/soil dependence of nonlinear damageability. These formulas, when combined with local soils data, are used to conduct probabilistic hazard analyses to derive maps of the damageability of future Bay Area earthquakes.